Intersections: The Interface Between Chemistry and Biology

In the preface to his classic text, "Principles of Biochemistry," Albert Lehninger stated "Biochemistry should be taught much earlier, since it has become the lingua franca of the life sciences and greatly illuminates subsequent study in any area of biology. And not only biology: An early course in biochemistry for students of chemistry or physics provides challenging glimpses of how living organisms solve some of the most fundamental chemical and physical problems." This project will develop, test and incorporate into introductory biology and chemistry courses a series of modules based on eight important scientific themes: molecular structure and bonding, intermolecular forces, biomacromolecules, enzymes and catalysis, acids and bases, organic chemistry, energy and thermodynamics and bioethics. The modules will utilize interactive computer visualization and molecular modelling techniques, will emphasize discovery and active learning and will be adaptable for both beginning and advanced students. The goal of the project is to facilitate learning and stimulate student interest in and enthusiasm for science.